Collaborative Research: Structural And Thermal Architecture of the North American Cordillera in SE California

The mountains of southern California provide a natural laboratory for studying how Earth's crust responds when plate boundaries change. A shift in the direction of the Pacific plate led to a series of tectonic events that reshaped the mountains. Understanding when, where, and how these events occurred helps explain how the Earth changes and is an important step toward identifying areas with mineral resource potential. This project assesses changes in the region through a combined field, laboratory, and modeling approach. The project will support multiple undergraduate and master's students, conduct outreach at regional community colleges, and engage the student community through field trips.

The mountains near the California–Arizona border preserve evidence of multiple tectonic events related to major changes in plate boundary dynamics. However, the timing, extent, and relative importance of these events remain debated. By integrating field observations, laboratory analyses, and structural and thermal modeling, this study aims to reconstruct the region's tectonic and thermal history. This will test the continuity of deformation events from the United States into Mexico, and how the crust responded to changes in the subduction angle before the formation of the San Andreas Fault System.